Support for the Center for BioDynamics at Boston University

The investigator and her colleagues collaborate in a group
project at the Center for BioDynamics (CBD) to provide
interdisciplinary education and training for graduate students
and postdoctoral-level investigators in the context of a vigorous
interdisciplinary research program that focuses on areas of
mutual interest in mathematics (especially dynamical systems),
biology, and engineering. Disciplines include mathematics,
biomedical engineering, aerospace/mechanical engineering,
biology, psychology, and physics. Training extends beyond the
usual classroom activities by engaging participants in a variety
of research projects as well. One of the major topics is dynamics
of the nervous system. The projects, which involve experiments,
modeling, and analysis, all deal with the variety of rhythms in
the nervous system and the potential functions of these rhythms
in key cognitive states and processes such as attention,
awareness, learning, and recall. A second major topic is
dynamics of gene expression. Progress in genomic research is
leading to maps of the building blocks of biology and fueling the
study of gene regulation, where proteins often regulate their own
production or that of other proteins in a complex web of
interactions. CBD projects focus on using techniques from
nonlinear dynamics, statistical physics, control theory, and
molecular biology to model, design, and construct synthetic gene
regulatory networks, and to probe naturally occurring gene
regulatory networks. The third major topic is the dynamics of
patterns and waves. Training activities include two weekly
working seminars, extra journal clubs and reading groups,
seminars to educate the CBD members in the research going on
within the Center, and a CBD-initiated team-taught course.
The Center for BioDynamics (CBD) helps to advance
understanding of difficult interdisciplinary problems at the
intersection of mathematics, biology, and engineering, and it
trains mathematicians, scientists, and engineers for the 21st
century workforce. It does this by combining traditional
classroom education with significant engagement of students and
postdocs in interdisciplinary teams working on current problems.
The disciplines involved are mathematics, biomedical engineering,
aerospace/mechanical engineering, biology, psychology, and
physics. One of the major topics is dynamics of the nervous
system. The projects in this topic seek to shed light on the
origin of the electrical activity in the brain, and how the brain
uses this activity to process sensory information, to think, and
to regulate movement. A second major topic is dynamics of gene
expression. The web of interactions among the proteins that are
produced by genes is complex; the projects associated with this
topic involve the design and construction of artificial gene
regulatory networks, and techniques to better understand
naturally occurring gene regulatory networks. The third major
topic is the dynamics of patterns and waves, occuring in a
variety of applications. Training activities include two weekly
working seminars, regular sessions to read scientific journals,
seminars to educate the CBD members in the research going on
within the Center, and a CBD-initiated team-taught course. The
project is supported by the Computational Mathematics, Applied
Mathematics, Computational Neuroscience, and Biological Databases
and Informatics programs and by the MPS Office of
Multidisciplinary Activities.